Connection to PREPNET

9314003 Cunningham The Pennsylvania College of Technology and Lycoming College request support from NSF for a multicampus connection of their campus networks to PREPnet. PREPnet is the midlevel network located in the state of Pennsylvania. PREPnet will provide operations management and information services and it will give the colleges s connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The colleges need greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the links. This is also a unique opportunity for the schools to explore innovative educational resources.